Improved Nuclear Magnetic Resonance Instrumentation for the Organic and Physical Chemistry Laboratory Curriculum

The Department of Chemistry will acquire an automatic sample changer, a variable temperature attachment and six microcomputers for use with an existing 300 MHz NMR spectrometer. The sample changer will run during off hours and greatly increase the number and sophistication of the NMR experiments the students can perform. Also to be developed is a "flight simulator" program to run on personal computers to familiarize students with the menus and displays of the NMR spectrometer software so they can make efficient use of the instrument during their hands-on time. The temperature control accessory will enhance the usefulness of the instrument in the physical chemistry laboratory courses.